Center for Technology and Innovation Management (CTIM): Planning Proposal

The objective of the Industry/University Cooperative Research Center is to establish a leading edge Industry/University Cooperative Research Center for Technology and Innovation Management (CTIM), challenge and advance the field of technology and innovation management with emphasis on creation and analysis of concepts, tools and processes. The Center will leverage and apply the unusual industry-academic partnership of the Northwestern University and the MATI - a consortium of 17 multi-billion dollar, multinational, technology-intensive firms and the central node in a domestic and international network of other industry-academic collaborations.

This Center will contribute to the practical knowledge and application of technology and innovation management. Practice-driven, CTIM will constantly interact with domestic and global firms and institutions. This link will highlight fertile and important topics and provide a dynamic laboratory for research and review of Center output. Membership will consist of actively participating industrial, consulting, legal and other firms and affiliates.